Citizen Science Online

Cornell University will develop "Citizens' Science Online." This project will use the Internet to develop ways of allowing citizens, at any level of prior sophistication, to participate in science by gathering data that will contribute to an understanding of the population biology of birds and for managing the natural ecosystems these birds inhabit. The program has five components: (1) software, user interfaces and background resources on an Internet-based program that is accessible to any North American participant; (2) nine existing citizen-science projects will be modified to make online data entry more accurate, to make participation more user-friendly and to facilitate feedback of results to the participants and public; (3) an extensive library of online support materials and tutorials, including photos, audioclips of vocalizations, maps and other information; (4) integration of all of these Internet-based projects and information via a comprehensive Web portal, Citizen Science Online; and (5) testing and modifying of the interactive database tools through partnerships with other organizations.